Professional Values and Ethical Issues in the Graduate Education of Scientists and Engineers

This project will complete data analyses and prepare a series of publications on ethics and values in graduate education in four fields: chemistry, civil engineering, microbiology, and sociology. The project, which is co-sponsored by the AAAS Committee on Scientific Freedom and Responsibility, the Council of Graduate Schools, and Sigma Xi, has been underway since 1987. Major research foci include the nature and transmission of professional values and ethical standards held by doctoral students and their faculty and the types of ethical problems and value conflicts that occur in the context of graduate education programs in the four disciplines. The study's findings and recommendations will be based on comparative and associational analyses of four sets of project data: (1) a 1988 national survey of graduate school deans concerning university policies and ethical issues in research and graduate education, (2) a 1990 national survey of 2,000 doctoral students enrolled in departments/programs in the four disciplines at major research universities, (3) a 1991 survey of 2,000 graduate school faculty in the departments/programs whose students were surveyed in 1990, and (4) a set of 78 in-depth interviews, ranging from 60 to 120 minutes, conducted during 1991-1992 with graduate students and faculty in the four disciplines at eight departments in three major research universities.